Science Discovery: A New Approach to Preschool Science Education

The Maryland Science Center is sponsoring Science Discovery, an approach for introducing science to 4- and 5-year-old children in a child care center environment. Four different centers, public, private, inner- city, and urban facilities, will be implementing this program in the Baltimore area. Qualified staff from the Science Center will visit each classroom once a week prepared to give a half-hour presentation to the children with the cooperation of the teachers. Once a month, teacher- training activities will be held in each of the four centers for the purpose of training the teachers in the content, skills, and methodologies necessary to insure an ongoing program. Materials and equipment necessary for implementation of the science lessons will be brought to the centers. Follow-up activities developed by teachers and staff will be provided each week so that teachers may have the teaching materials to extend the lesson. In addition to the teacher training component and the support and resources provided by the Maryland Science Center, appropriate curriculum material will be developed by staff, teachers and science educators which will be useful at the kindergarten level as well as for preschoolers.